A New Model for Engineering Communications Training : Cooper Union's Connect Program

This project provides materials and resources enabling universities nationwide to reproduce and customize a program on communication training recently developed at the Cooper Union in New York City. Primarily the project produces a Communication Training Handbook supported by Video Modules. These products are to be available in shortened form on a website and as downloadable files.

The communication program, known as CONNECT, consists of a series of intensive, experiential workshops that deal with fundamental issues and then transitions into a menu of advanced topics and professional engineering scenarios. The workshops are complemented by a series of seminars in graphical communications and workplace, entrepreneurial or international issues. The program has been in development since 1994 and was expanded to the whole engineering school in 1997. It is administered by the engineering school and linked to specific courses, thereby, integrating it into the curriculum.